Operation of the National Superconducting Cyclotron Laboratory and the Michigan State University Nuclear Science Program

9528844 Gelbke Research in heavy ion nuclear physics will be carried out at the Michigan State University Superconducting Cyclotron Facility (MSU/NSCL). The NSCL is a national user facility , with research being carried out by faculty, staff, postdocs, and students from MSU, from other universities in the US and abroad, from US national laboratories, from other federal agencies, and from industry. Proposals are made to the NSCL for use of the available accelerator beam time and for other specialized resources needed to carry out the experiment. All proposals are reviewed by a national program advisory committee, which in turn makes recommendations to award beam time or to decline these proposals. The NSCl operation staff provides about 4000 hours o accelerator beam time per year. ***